Logic-Layout Co-Synthesis for PTL/CMOS Logic

The goal of this research is to develop a comprehensive methodology for
the synthesis of control dominated random logic circuits, targeting mixed
pass-transistor (PTL) and static CMOS logic. Central to this methodology
is the integration of top-down design partitioning and logic synthesis
with bottom-up layout assembly. Specific tasks include: a) algorithms
for initial Boolean network partitioning; b) novel BDD-based logic
decomposition driven by PTL/CMOS technology requirements; c) circuit
synthesis for mixed CMOS/PTL technology; and d) global level placement and
floorplanning to assume control over the wiring-induced delays in the
final layout. An experimental synthesis system based on this methodology is
now being developed.